Second U.S. Conference on GaAs Manufacturing Technology

Gallium Arsenide and related compound semiconductors have progressed from the R&D to the production stage where manufacturing efforts are being planned and carried out. The processing of these materials is very different from the processing of Silicon for integrated circuits. This proposal covers a request for support of the Second U.S. Conference on GaAs Manufacturing Technology. A substantial group of leaders in the field, representing U.S. industry, universities and government, will meet at this conference. This conference will take place October 12-14 at Portland, OR. This conference represents an attempt to integrate university based manufacturing studies with industrial manufacturing engineering efforts. NSF support of this interactive role is extremely important.